Wichita State University (WSU) Industry University Cooperative Research Center for the Reduction of Waste in Aerospace Logistic Systems

Wichita State University is planning to join the existing Industry/University Cooperative Research Center for Engineering Logistics and Distribution. The existing multi-university center's vision is to provide integrated solutions to logistics problems through modeling, analysis, and intelligent systems technologies. Wichita State University is actively pursuing basic and applied research in these areas specifically towards the aerospace industry and potentially the Kansas ethanol industry. The objectives of this center are (1) to conduct research and to bring about practical solutions by focusing on industrially relevant research needs; (2) to foster industry/university collaboration to reduce waste; and (3) to promote interdisciplinary research activities and to nurture students through real-world industry projects.